Research Experiences for Electrical Engineering Undergraduates

The Marquette University Department of Electrical and Computer Engineering has a REU Site program involving eight students. The students have a research experience working on one or more research projects which involve the examination/modification/improvement of existing algorithms and the development/implementation of new algorithms for speech feature extraction in noise, antenna design and scattering analysis, solid state system modeling, power device and system design, and neural network modeling. The research experience includes individual instruction in necessary background information, participation in regular seminars of their active research groups, familiarity with the research literature in their areas, oral communication of their research results in appropriate seminars, and a final written research report. The goal of the Program is to start the participants on the path to become independent researchers and to motivate them to pursue graduate studies.